Biogeomorphology: Terrestrial and Freshwater Aquatic Systems

SBR-9529104 Howard This award supports international travel for five geomorphologists to attend the 1995 Binghamton Geomorphology Symposium. This year's symposium is has the theme of biogeomorphology in continental and in freshwater-aquatic systems. The symposium assesses the progress made in the interdisciplinary area of biogeomorphology (study of the interaction of geomorphic, hydrological, and ecological phenomena) in the 35 years since the publication of the seminal article in the field. The field has developed somewhat differently within and outside the United States, so that the participation of key foreign researchers is of great value. Topics of the symposium include interactions between geomorphic and ecological processes, vegetation's effects on runoff, influences of animals on soil and sedimentation, and the effects of vegetation on geomorphic processes in a wide variety of climatic regimes.